I/U CRC for Repair of Buildings and Bridges with Composites - RB2C: Continuing Grant

The Industry/University Cooperative Research Center (I/UCRC) for Repair of Buildings and Bridges with Composites (RB2C) has operated for the last five years form its base at the University of Missouri-Rolla and has focused on addressing the needs of the construction industry in the areas of rehabilitation and strengthening of existing structures using novel materials and technologies. North Carolina State University has joined the University of Missouri-Rolla as the partner in the Center. Together, the Center maintained an ideal core as it includes manufacturers, distributors, applicators and users of composite products/technologies.